MRI: Novel Laser Velocimeter Using Modulated Filtered Rayleigh Scattering

Abstract Varghese Funds are awarded to develop a new laser velocimeter that allows continuous measurement of velocity at rates ranging from 10-100 kHz. The instrument will utilize a novel variation on filtered Rayleigh scattering called Modulated Filtered Rayleigh Scattering. This velocimeter will be an improvement on typical laser doppler velocimetry because of the following features: only a single beam is required, rather than two beams, by viewing in opposite directions, two components of velocity can be measured using a single laser beam; velocity measurements every 20 microseconds are feasible; multi-point measurements can be made; measurement sensitivity can be maximized without optical realignment; measurements will be possible in luminous and sooting flames; measurements can be made in unseeded flows. The system will make flow-mapping studies more efficient than current LDV methods.